NSF Young Investigator

This is an NYI project which is concerned with the engineering effects of watershed and channel erosion. Related topics are calibration of an empirical model for predicting debris volumes, design of engineering structures for mitigating debris flows, formation of policies to control land development in debris-prone areas.